CEDAR: Plasma Layers and Tides in the Lower Thermosphere

This project will continue studying descending tidal layers. The PI intends to study the composition of layers and how the composition changes as the layer descends in altitude. The layers should also be information sources on the dominant tidal modes of the lower thermosphere. Specifically, he wishes to question: (1) conditions required for formation of the layers, (2) how and when, during its descent, metallic ions enter a layer, and (3) how climatological representations of descending layers compare with the theory of tides in the lower thermosphere.***